STTR Phase II: Universal Wireless Channel Selection Filter for Enhanced Access to RF Spectrum

This Small Business Technology Transfer Research (STTR) Phase II project will extend the basic science of linear interference delay effect filters, enabling ultra-wideband tunable RF filters for all types of RF receivers and instrumentation. It will also extend the engineering science of implementing such filters as integrated circuits. And, its distortion filtering aspect will enable enable signal agnostic,adaptive cancellation of wideband, and in-band, interference, for anti-jamming applications as well as to enhance signal quality for the consumer.

The broader impact/commercial potential is that it will help achieve the national goal of expanding access to RF spectrum by maximizing
spectral efficiency with its continuous tuning. Second, it reduces filter cost and space requirements while increasing reliability by eliminating increasingly complex filter banks. This will result in smaller, cheaper and more dependable phones for consumers, which will help drive industry growth. Third, the results of this project will deliver Smartphone GPS accuracy rivaling commercial units, as well as enabling protection of GPS-dependent infrastructure against inadvertent or intentional disruption. Fourth, it will enable precise, jamming resistant GPS navigation by aerial drones used by first responders, homeland security and the military, helping prevent crashes that place people at risk.